Purchase of Instrumentation for Peptide Synthesis and Purification

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Colorado at Boulder to acquire an automated solid- phase peptide synthesizer and a high performance liquid chromatograph (HPLC). This equipment will enhance research in a number of areas including the following: (1) studies utilizing peptides to probe intermolecular tuning of protein signaling, (2) studies of the structural ramifications of glycosylation on peptide conformation, (3) synthesis and characterization of phosphopeptide analogues, (4) structural characterization of the protein folding intermediates and protein design, and (5) studies of the MAP kinase signal transduction pathway. The peptide synthesizer and the high performance liquid chromatograph (HPLC) are used by biological scientists to make and purify analogs of the natural substrates/effectors of a variety of proteins.